Evaluating the Application of Virtual Realities in Science Education

9555682 Loftin The major emphasis of this project is optimizing, evaluating, and porting to classroom settings the immersive environments already created. An overarching theme in this ScienceSpace research is to develop a theory of how multisensory "immersion" aids learning. These virtual worlds can simultaneously provide learners with 3-D representations; multiple perspectives/frames of reference; a multimodal interface; simultaneous visual, auditory, and haptic feedback; and types of interaction unavailable in the real world (e.g.,seeing through objects, flying like superman). With careful design, these capabilities all can synthesize to create a profound sense of motivation and concentration conducive to mastering complex, abstract material. Studying this new type of learning experience to chart its strengths and its limits is an important frontier for cognitive science research and constructivist pedagogy. All ScienceSpace virtual worlds are built using a polygonal geometry. Colored, shaded polygons and textures are used to produce detailed objects. These objects are linked together and given behaviors through the use of NASA-developed software that defines the virtual worlds; connects them to underlying physical simulations; and handles graphics rendering, collision detection, and lighting models. Interactivity is achieved through the linkage of external devices (e.g., head-mounted display, 3-D mouse). The investigators have developed extensive assessment methodologies and instruments, literally hundreds of pages in length, for studying how and what users learn in the worlds we have created. Researchers are videotaping the hours of time spent with each subject, then studying these records for additional insights. This careful evaluation strategy is generating detailed data from which a comprehensive picture is being constructed of how multisensory immersion can enhance learning, as well as how virtual reality's usability can be enhanced. In addition, the strategies underlying these assessment methodologies and instruments are generalizable to a wide range of synthetic environments and virtual worlds. This project makes a significant contribution to knowledge and learning for at least three reasons: * the next step in the evolution of constructivist pedagogy is the usage of multisensory in synthetic environments * virtual reality interfaces provide a unique testbed for transferring to educational settings capabilities from data visualization, sonification, etc.; and * learning through multisensory immersion could leverage a huge installed base of videogame technology as a means for the delivery of education outside of school settings. ***